Collaborative Research: Dispersal Limitation as a Primary Factor in Determining Ectomycorrhizal Community Structure

Proposal Title: Collaborative Research: Dispersal Limitation as a Primary Factor in
Determining Ectomycorrhizal Community Structure
Institution: University of California-Berkeley
Abstract Date: 12/04/07
Ectomycorrhizal fungi are obligate mutualists with temperate forest trees such as pines,
oaks, aspens, and birch. These fungi provide mineral nutrients to the trees in exchange
for sugars, and trees require them for growth and survival. Following severe
disturbance such as forest fires or logging, trees need to reestablish their relationships
with mycorrhizal fungi in order to survive. Prior work has shown that these fungi arrive
in an ordered sequence, or "succession", after such disturbances. A new model is
proposed to explain this observed pattern through differences in spore dispersal and
competitive interactions among mycorrhizal fungi. Four key predictions of this model
concerning limitations to aerial spore dispersal and effect of tree root density on fungal
competition will be tested through a combination of field sampling and manipulative
growth-chamber experiments. The broader impacts of this work are that it will help us
understand an essential biotic process necessary for tree establishment, and will build a
foundation of basic ecological knowledge for an important group of understudied
organisms. Training of graduate and undergraduate students will be an important
component of this research. In addition this work takes advantage of its location within
Point Reyes National Seashore by feeding back into management decisions within the
park and through outreach efforts directed towards public education.